Continued Operations of the Sondrestrom Incoherent Scatter Radar Facility

This award is for a cooperative agreement with SRI International. Under this agreement SRI is funded to operate and coordinate the authorized use of the NSF-owned Sondrestrom Radar Facility located in Sondre Stromfjord, Greenland. SRI coordinates and provides logistic support, with the help of the U.S. Air Force, for users who travel to Greenland. SRI also provides data reduced to geophysical parameters to radar users, interested researchers, and the data base at NCAR. In addition, SRI scientists use the radar to carry out an active research program of their own.